FASEB Summer Research Conference on Retinoids; June 17-22, 1990; at Vermont Academy in Saxton's River, Vermont

This application requests partial support for the 1990 FASEB Summer Research Conference on Retinoids. This conference is scheduled to be held June 17-22, 1990 at the Vermont Academy in Saxton's River, VT. The field of retinoid research has expanded in the last decade to include scientists from diverse areas. The major goal of this conference is to provide a common forum to scientists from different countries and backgrounds to learn about the latest developments in retinoid research and share their ideas with colleagues. This is particularly important for junior researchers who are finding productive and stimulating environments for their future endeavors. The conference will provide a poster discussion session to maximize active participation by junior researchers. Research on retinoids is important for understanding cell communication, development and differentiation, phototransduction in vision, and regulation of gene expression. This conference will provide the opportunity for researchers working in these diverse areas to discuss their common concerns and develop new approaches that will increase basic knowledge of the function of these important biological molecules.